Mathematical Problems in Quantum Information Theory

The primary goal of the proposed research in this project is to
develop the mathematical tools needed to prove several outstanding conjectures
in Quantum Information Theory. The central conjecture states that
minimal output entropy is additive for product channels, where a channel
is the mathematical representation of a noisy quantum system. The
mathematical setting concerns properties of
completely positive maps on matrix algebras. Building on results and
methods from
earlier work, the PI expects to establish this conjecture for all
qubit maps, and in the process develop tools that will apply to higher
dimensional
maps. The PI expects to produce results that are both mathematically
interesting
and also useful for quantum information theory.

Quantum Information Theory is concerned with exploring the new resources that
are available in physical systems whose behavior is wholly or partly
governed by
quantum effects, for example single-atom systems and single-photon states.
Recent theoretical
discoveries
indicate that such systems may have extraordinary properties. One example
is the quantum computer, which is a theoretical device capable of
outperforming any standard computer. Another example is a protocol for
unconditionally secure encryption, which would be achieved by encoding
messages as quantum states. Mathematics has played an essential role in the
development of these new ideas. The present proposal is aimed at using
advanced mathematical techniques to explore the implications of
using entangled quantum states in communication systems.
A fundamental problem is to determine the
information capacity of such a system, and thereby find the quantum analog
of Shannon's famous expression for the capacity of a noisy channel.
The broader impact of the proposed activity rests on the potential
applications of
quantum information theory in physics and computer science, and ultimately in
technology.